Hybrid Control of Building Seismic Response Using Architectural Cladding

Experimental and analytical investigations of hybrid control systems designed to combine passive damping provided by cladding- structure interaction with robust active control systems will be conducted in this project. Experienced gained in the study of advanced cladding connection systems designed to be employed in buildings as passive energy dissipation and stiffness augmentation systems will be put to advantage in this investigation. The research plan is organized into five primary tasks: (1) Use of cladding as a passive control system; (2) Application of classical, modern, robust and pulse control to buildings; (3) Development of possible hybrid control systems; (4) Performance evaluation; and (5) Model experiments (and plans for future testing). The research will be carried out by an interdisciplinary team of researchers that combines active and practical involvement in earthquake engineering with broad experience in the development and application of robust control theory. Interaction among the proposed multidisciplinary team members will be in the areas of dynamic modelling (including modelling of uncertainties), trade- off studies related to the relative degrees of passive versus active damping, and experimental validation. Results of the overall research effort are expected to contribute: (1) innovative approaches to robust control of building structures (both active and passive), and (2) innovative methods for combining engineered passive damping systems with modern robust controllers to achieve practice building control systems that can be applied to earthquake and other dynamic loading conditions.